Proximate Causation of Paternal Behavior

Most knowledge of parent-offspring relations in mammals is based upon studies of mother-infant interactions. Recently, there has become a new awareness of the importance of the mammalian father in the care and development of his offspring. Indeed, paternal behavior does occur in a minority, but significant number, of mammals primarily among rodents, carnivores, primates and humans. However, our knowledge on on paternal care is based largely from descriptive studies. Thus, very little is known about the basic mechanisms underlying this behavior. Dr. Gubernick has selected a species in which their biparental care system is well documented. The males actively participate in rearing young and display all the components of parental behavior exhibited by mothers, and to the same extent, except nursing. Dr. Gubernick will determine the hormonal mechanisms and sensory controls underlying the prepartum onset and postpartum maintenance of his behavior. This work provides a model for the investigation of family systems and of mechanisms of paternal behavior that operate in other species, such as humans, that might otherwise be undetected. The findings will be of considerable theoretical importance for the formation of general principles of paternal investment and the evolution of parent-offspring relations.